Internet Multicast: Monitoring, Measurement and Transition

This award supports a three year project to address the problems of scale and manageability of multicast on the Internet. Multicast shows great promise for such applications as real-time multiparty conferencing, but is hampered by the fact that it uses unicast routing technology which is not designed for such applications, and deployment of the MBone isn't widespread and stable enough for reliable communication. The PI proposes to develop tools for measurement and monitoring the MBone to assist in a better understanding of its operation and as a base for improving its performance, and then to implement solutions.